RUI: Software Reliability Models

Prior research in modeling software failure rates has been based on mathematical models of hardware reliability. These models do not reflect the measurable, internal characteristics of the software systems. One measurable characteristic of software, its complexity, has been shown to correlate well with measures of software failure. Thus, incorporating software complexity measures into existing reliability models provides substantial improvement in their accuracy. Creating a mathematical model of software reliability is similar to creating a hypothesis for a scientific experiment: the model must be validated through experimentation. In this research, data collected during the development of the Space Shuttle onboard flight systems provides an experimental project in which the hypothesized reliability models are studied. One of the most important aspects in the comparison of different reliability models is their predictive quality. The goal of software reliability modeling is to predict the future failure behavior of software using past and present data. New reliability models with relative and functional complexity are compared to existing models in terms of their predictive quality and quality of fit.